Increasing Hands-on Elementary Science in the Classroom withthe Use of Video Technology for Teacher Inservice

This three year proposal describes a joint effort between the New York State Education Department's Bureau of Science Education and Public Broadcasting Program in conjunction with New York State's Elementary Science Mentor teacher training network. Video based inservice material will be designed and developed that presents hands-on problem solving to all elementary teachers regardless of their ability to attend workshops. A secondary goal is to design and develope video based materials to inform and motivate school administrators and parents, to become actively involved in striving toward the long range goal of creating quality hands-on problem solving elementary science programs for their children. The established Mentor network will be used to train one teacher/mentor in each of the 1,000 public and nonpublic elementary schools in New York State. These 1000 teacher/mentors will then train or make available the "stand alone" video materials to the 80,000 elementary teachers in their buildings. The cost sharing will be forty-seven percent of the NSF portion.